Collaborative Research: Integrating geochemistry, microbiology, and hydrodynamics: A model for trace element transport and fate in hydrothermal plumes

Although hydrothermal plumes, over time, have had a significant impact on ocean chemistry, much remains unknown about the chemical and biological processes that occur in rising vent plumes where most mineral precipitation and redox chemistry occurs. This research addresses the abiotic and biological factors in early-stage hydrothermal vent plume processes and the impacts of these processes on particle formation, microbial community composition and structure, and chemical scavenging and transport by both organic material and mineral precipitates. Vent fluids, associated precipitated minerals and microbial samples that were collected on a cruise to the Eastern Lau Spreading Center in 2009 will be analyzed using state-of-the-art mineralogical and molecular biological techniques. These include synchrotron radiation X-ray adsorption and diffraction using the Advanced Light Source in Berkeley and metagenomics. Goals of the research are to determine the microbiological communities inhabiting the rising plumes, the role of plume-living/generated microbes and organic matter in particle formation and aggregation, chemical trends in plume chemistry from the vent to the top of the plume and its influence on the distribution of microbial species, and if particle aggregates influence the subsequent chemical evolution and fate of the particles. Models of mineralogical and biological interactions will be developed and coupled with those simulating hydrodynamics of the rising plume in order to simulate vent plume processes. Broader impacts of the work include support of three early career scientists, one of whom is from a gender under-represented in the sciences. The integration of teaching and learning which includes incorporating research into classes and working to include results into a summer camp for high school students and teachers. Two undergraduate summer students from under-represented minorities will also be involved in the research.